A Deep-Tow Magnetometer, SEABEAM, and Airgun Study of the Pacific Jurassic Quiet Zone

The "tape recorder" analogy of magnetic reversal patterns frozen into oceanic crust has been one of the major discoveries in the last three decades of earth science research. Though marine magnetic lineations have been identified back to M38, none in the Pacific that are older than M25 have yet been proven conclusively to result from field reversals. Part of the difficulty in evaluating these oldest anomalies results from their characteristically low amplitudes and apparently short periods. Johnson and his colleagues propose to construct a magnetometer that will be towed near the seafloor, and being closer to the source of the lineations than conventional shipboard or airborne instruments, this device will detect especially subtle features. During 22 days of surveying, Johnson and his colleagues will also gather topographic measurements of the oceanic crust and the seafloor with seismic reflection profiles and SEABEAM swath maps, respectively. Three regions will be surveyed in the western Pacific where post-M25 magnetic lineations are known from previous studies. These new data will allow modelling studies to compare details among the three study areas. If similarities in wavelength and amplitude are found, they will strongly support the interpretation that they are true records of magnetic field reversals. If future ocean drilling recovers and dates the sediments resting on these lineations, the marine magnetic reversal time scale could be extended several millions of years further back into the Jurassic.